SENSORS: Collaborative Research: ALOHA Mooring Sensor Network and Adaptive Sampling

P.I. Howe (UW) Proposal #: 0330082
Collaborating Inst: Lukas (UH) Proposal #: 0330294
Collaborating Inst: Boss (Maine) Proposal #: 0329581

Proposal Title: SENSORS: ALOHA Mooring Sensor Network and Adaptive Sampling

Project Summary
The PIs propose to develop a moored deep-ocean sensor network that will first be installed at the Hawaii Ocean Time-series (HOT)/ALOHA Observatory (AO) and then at other cabled observatory sites as they are implemented. This moored sensor network is based on a profiler that will move between near-surface and fixed abyssal sensors under program control. The PIs feel that this project will demonstrate the scientific potential of combining adaptive sampling methods with a moored series of profiling sensors. The PIs will also develop optimization software tools to maximize overall information return given the constraints of competing scientific objectives, the continually changing environment that will be observed, and the physical limitations of the observing sensors and network. The power and two-way real time communications capability provided by the recently funded cabled ALOHA Observatory is essential to the sampling improvements and sensor network proposed here.